Workshop on Approaches to the Analysis and Visualization of Massive Data Sets; San Diego, California

DMS 9705599 Approaches to the Analysis and Visualization of Massive Data Sets David Rocke Summary Analysis and visualization of massive data sets is an important problem which has only recently become relevant. We now have the ability to generate massive amounts of data from areas as diverse as satellite imagery and the human genome project. Computer hardware has progressed to the point where data sets of a scale from hundreds of gigabytes to terabytes can be stored, and data can be retrieved from them, but the challenge of analysis and visualization has only just begun to be met. This workshop will bring together scientists who generate massive data sets in astrophysics, environmental science, geophysics, and other areas and mathematical scientists from a broad array of backgrounds who can develop methods to attack these problems. The invitees will include specialists in statistics, statistical computing, statistical graphics, smooth and combinatorial optimization, computational geometry, databases, and visualization, as well as astrophysics, geophysics, and environmental science. The product of this workshop will include not just a collection of papers but also a white paper presenting an agenda for attacking these important and salient problems.